Qualitative Behavior of Nonlinear Hyperbolic Waves

The research under this award is devoted to the study of solutions of nonlinear
partial differential equations which model the propagation of waves such as
light waves and sound waves. These phenomena do not have viscous effects
which means that the differential equations are of hyperbolic type. The mathematical
analysis provides new rigorous error estimates for exact solutions and
approximate solutions that are valid in the limit of short wavelengths. Particular
emphasis is placed on problems of nonlinear optics. Four main problem areas are
addressed. The first is the investigation of qualitative properties of three nonlinear
models. The basic question is whether these models predict singularity formation or not.
In the second area, reliable approximate solutions for nonlinear optics problems
will be constructed that are valid for larger amplitudes than previously possible.
To do so requires hypotheses for the nonlinear interaction terms which are verified
in many practical models. The third problem is to investigate the effects of strong
nonlinearity at focal points. The fourth problem area is to construct approximate
solutions with error estimates for equations that describe ultra short laser propagation.

The research that is supported by this award focuses on mathematical models for wave
propagation phenomena, specifically on high frequency phenomena such as light waves and
acoustic waves. The results from this research can be used to validate current models
for such phenomena, predict new effects, and help in the design of new equipment.
Much of this work is motivated by problems for ultra intense lasers and optical
parametric oscillators where difficulties with modeling and design have been encountered.
The mathematical investigations will allow to predict situations in which optical devices
become unstable or are damaged.